Mapping the Genome of Domestic Animals, February 25-28, 1990at the Banbury Center, Cold Spring Harbor, NY

The proposed project will be held on February 25-28, 1990 at the Banbury Center to review the present state and future prospects for Mapping the Genomes of Domestic Animals and for determining linkages to traits of importance in livestock production. The meeting will consider three major topics: 1) to determine the state of the art for analyzing large genomes, with reference to the techniques and strategies being pursued in other organisms; 2) to identify possible associations with gene mapping programs in other species and countries, as well as the various human genome projects in the U.S.A. and abroad; and 3) to assess the national resources and needs in the area and to lay the foundations for a collaborative national program for Mapping the Genome of Domestic Animals.